An International University-Industry Cooperative Research Program Between The Center for Ceramic Research at Rutgers University and Several Swedish Institutions

The project implements an international industry/university/government cooperative research (II/U/GCR) program between the United States and Sweden. The program will couple the Center for Ceramic REsearch at Rutgers University with the Swedish Silicate Research Institute, Stockholm University, and the Royal Institute of Technology. The design of the program and selection of the four ceramic research projects in the U.S. and the four ceramic research projects in Sweden provides for parity in scientific and technical merit and monetary level of effort. The II/U/GCR program will test and verify the proposed international inter-institutional infrastructure and protocols and/or modification of them as required. The program will also provide operational evidence that NSF seed money can be used to initiate long term support from industry for international industry/university cooperative research.